Mathematical Sciences: Climate Thresholds and Climatic Change

This award supports the cross-disciplinary efforts and the development of research collaboration involving quantitative modelling in the geosciences. In particular the collaborators will focus their attention on the statistical formulation of a useful prediction model for nonstationary climate data with problems of unequal scale.